NUE: Nano Undergraduate Engineering at The George Washington University (NUE@GWU)

This Nanotechnology Undergraduate Education (NUE) in Engineering program entitled, "NUE: Nano Undergraduate Engineering at The George Washington University (NUE@GWU)", at George Washington University (GWU) under the direction of Dr. Robert R. Vallance, will develop a program that will prepare undergraduate engineering students for careers or graduate studies in the design of systems and devices employing biological nanotechnology. This goal will be accomplished by infusing bio-nanotechnology into GWU's undergraduate engineering degree programs with new content, in the form of new courses and new laboratory experiments. With strong institutional support, faculty from the Mechanical and Aerospace Engineering, Electrical and Computer Engineering, and Civil and Environmental Engineering departments will collaborate to develop six new courses along with a set of ten laboratory experiments to enhance existing courses.